Data Collection on Bay Bridge Damaged during October 17, 1989 Earthquake

This is a SGER project to collect and to study the perishable earthquake and structural response/damage data due to the October 17, 1989 Loma Prieta earthquake. Work underway in this project is to collect and analyze damage data of the San Francisco Bay Bridge due to the October 17, 1989 earthquake. Such data is rapidly disappearing during the intensive repairing process commenced immediately after the upper deck failure. In cooperation with the California Department of Transportation (Caltrans), extremely valuable data on severely damaged bridge elements including the collapsed deck has been recovered and continues to be collected. This body of engineering data will be processed and analyzed. A report of such information, including the implication to the bridge response and design consideration will be prepared.